TC: Small: Improving System Security through Virtual Layered File Systems

Desktop computers run many different applications, the
compromise of any one of which can compromise the entire desktop given
the lack of isolation among applications. Recovering a compromised
desktop remains a time consuming task, which typically requires wiping
everything and reinstalling the system from scratch. These
security issues pose fundamental challenges as desktop computers are
relied on for everything from financial transactions to
medical records. To address these problems, we are creating novel
virtual layered file system (VLFS) technologies to improve system
security. Unlike a traditional file system which is a monolithic
entity, a VLFS dynamically composes together a set of software layers
into a single file system view for a desktop. Changes to one layer
are isolated and decoupled from changes to another. The VLFS dynamic
composition feature enables powerful and easy-to-use security
functionality. We are using VLFSes to build an architecture to enable
security patches to be deployed effectively when managing large
numbers of heterogeneously configured machines, and to speed system
recovery from security exploits. We are also using VLFSes to develop
a transparent desktop application fault containment architecture that
is effective at limiting the damage from exploits to enable quick
recovery while being as easy to use as a traditional desktop system.
The results of this proposal will provide a foundation for future
computer innovations to provide improved system security for users'
systems. Because we are working with industry-standard operating
systems and binary application and patch distributions, our results
will be directly applicable to the commercial world.